Program for Gender Equity in Science, Mathematics, Engineering and Technology (PGE): LCP: Middle School Students' REALM (Really Exploring and Learning Meteorology)

The Meteorology Department and Science Education program of Florida State
University, in collaboration with the National Oceanic and Atmospheric Administration
(NOAA), will carry out a school-site meteorological project to be located in Miami/Dade
County Public Schools. This new collaborative project is entitled Middle School
Students' REALM (Really Exploring And Learning Meteorology). The project's foci
are: (1) to expose more middle school girls to meteorological science content, (2) to
develop a positive and supportive learning environment for participating girls and boys,
(3) to provide on site technical assistance to participating science teachers for content
implementation, and (4) to provide a vehicle for greater parent-girl participation in
science activities. In order to maximize resources, available
meteorology resources (weather stations) that are in demographically dispersed middle
schools will be used. Involvement in this project will enhance girls' awareness of career opportunities
for women in the field of science in general and meteorology in particular. This project
will also increase middle school girls' self-esteem and confidence in learning science
concepts, which integrate the use of mathematics and technology. This project model
aims to reduce the attrition in advanced level science, mathematics and technology
coursework that typically occurs as girls move from middle school to high school,
which carries over into higher education.